I/UCRC Competitive Renewal: Operating Center Proposal for an Industry/University Cooperative Research Center: I/UCRC for Measurement and Control Engineering

ABSTRACT
EEC-9978598
HIGH

This proposal is for renewal of an I/UCRC on measurement and control engineering which was originally established at the University of Tennessee. The present proposal outlines multi-university collaboration between the University of Tennessee and Oklahoma State University. The existing center will be expanded by partnering with OSU which adds advanced process control with a focus on modeling and experimental computer intensive studies. The program includes one investigator from Eastern Carolina University.

The current research program emphasizes two areas: analytical Instrumentation and process control optimization and modeling. UTK faculty are involved in both research areas, whereas, OSU faculty are involved only in the process control optimization and modeling area. The proposal does not clearly delineate changes in the research focus of the previously funded center that is to be accomplished by adding the OSU program. Industrial involvement and membership are of high level and considered strength.